Collaborative Research: Analysis of Seismicity Associated with the Mw=8.8 2010 Maule Earthquake and Implications for Subduction Processes

The Mw=8.8 Maule earthquake off the coast of Chile on
February 27, 2010 is the 5th largest megathrust earthquake ever to be recorded and the 2nd
largest to be recorded by modern digital seismic networks. Immediately following the
Maule earthquake, teams of seismologists from Germany, France, the UK, and the US,
working with seismologists in Chile, coordinated resources to deploy both broadband and
short period seismometers and accelerometers above the rupture zone to capture
aftershocks associated with this significant earthquake. Data recorded from these stations
will be combined to produce an open international community data volume providing an
unprecedented opportunity to investigate processes associated with great earthquakes and
to image the anatomy of a subduction zone. A defining characteristic of the Maule aftershock investigations
has been collaboration, at both national and international levels. The original involvement
in the data collection by US teams grew voluntarily out of the IRIS community, and the
rationale of greater efficiencies through cooperation was readily adapted by the five
international groups working in the region.

In this project the researchers will carry out a broad but
interrelated spectrum of seismic analyses to the Maule international seismic data set,
along with a reanalysis of a selection of data collected in the rupture zone prior to the
earthquake, to address some of the fundamental scientific objectives that motivated the
initial data collection. These objectives fall into two general categories: (1) rupture
processes of megathrusts, and (2) active tectonics and dynamics of an oceanic-continental
(Andean) margin. They intend to produce an internally consistent set of data products across a range of
analytical techniques. The PIs will share graduate students and scheduling extended visits to each others labs, thereby exposing students to a significantly broader range of experience than most students typically enjoy. Finally, they plan to engage our international colleagues by sharing some analysis tasks of mutual
interest. Data products generated by this study will be made available to the broader
international community via a dedicated web site.